Dissimilar Mineral Interfaces: Understanding Mica/Mineral Surface Interactions

Boles
EAR-0073813

The objective of this project is to develop a quantitative model to explain geologic examples of clay-quartz and clay-carbonate surface interactions. In a general way this work will lead to a fundamental understanding of the interaction of dissimilar mineral surfaces separated by water films. We plan experiments to measure surface forces between micas and silica separated by water films. From these experiments we will develop a model predicting short-range adhesion forces and long-range hydration and 'colloidal' forces, and diffusion in molecularly thin aqueous fluid films trapped between two dissimilar mineral surfaces. The effects of temperature and pressure on these interactions will also be investigated. The experiments will be guided by the composition of natural materials exhibiting clay-mineral interaction which are found over a wide range of geologic conditions.